Transient Stress Response of Magnetorheological (MR) Materials

9817578
Magnetorheological (MR) materials consist of dispersions of micrometer
sized particulates of magnetically soft materials in organic liquids. When
an external magnetic field is applied, the polarized magnetic particles
form "pearl chains" constituting a fibrillated structure that exhibits a
respectable "yield stress" (~ up to 100 kPa). MR fluids represent a
technology enabling and intellectually engaging family of smart, field
controllable materials. MR fluids can enable many technologies for active
vibration control. Applications include shock absorbers, smart bridges, and
dampers for high rise buildings for protection against seismic activity.
The goal of the proposed program is to carefully investigate the
application relevant, dynamic mechanical properties of MR materials with a
view to elucidate the mechanics and also the mechanisms underlying MR
materials. We will elucidate the transient stress response of MR fluids in
switching magnetic fields. Our collaborations with industry will be useful
in transferring our research outcomes to the industry.